Nonlinear Near Millimeter Wave Properties of Semiconducting Heterostructures

An optically-pumped, near-mm-wave, high-intensity laser has been constructed at Cornell University for the purpose of measuring the nonlinear susceptibility of two dimensional electron gas (2- DEG) structures in the Terahertz frequency region. A collaborative Industry/University research program is proposed, entered around this instrumentation, in which measurements are made on the far infrared nonlinear properties of high mobility 2- DEG samples provided by IBM. One goal is to drive the collective 2-DEG electronic modes far from equilibrium with high intensity resonant radiation tuned to the natural quantum transition frequencies. Since very little research has been carried out as yet on the nonlinear high frequency properties of 2-DEG systems a number of different experiments are proposed. These include saturation measurements on the sub-band states and on the cyclotron resonance mode in magnetic fields up to 11 Tesla, identification of resonant and nonresonant hot electron effects, observation of period doubling and a new type of second harmonic generation predicted to occur for the 2-DEG surface layer and appears in the sample at high intensities. A continuation of the investigation of persistent IR hole burning at defects in semiconductors is also proposed with effort directed toward probing the dynamic of the DX center in aluminum-gallium-arsenide and the divacancy in silicon.